Travel Support for U.S. Scientists to Participate in the Second International Cloud Modelling Workshop, Toulouse, France, August 8-12, 1988

An "International Cloud Modelling Workshop" will be held in Toulouse, France on August 8-12, 1988. This is the second workshop in a series with the primary goal being to promote constructive interaction between scientists working on theory, numerical models and those working with observations. The focus of this workshop will be on cloud microphysics and participation will involve two phases. First of all, participants will carry out numerical experimentation at their home institutions using data provided by the workshop organizers. During the Workshop in Toulouse, participants will meet to compare model results against observations and against other modeling efforts. The purpose of this award is to ensure participation of a strong contingent of US scientists at the meeting. Selection of recipients of travel support will be made upon the recommendation of a panel of experts including representatives of the American Meteorological Society Committees on Weather Modification and Cloud Physics as well as members of the United States Workshop Organizing Committee.